Collaborative Research: Understanding the Diversity of Parasites and Infectious Diseases in Three Mammalian Orders

Pathogens and parasites are a major component of biological diversity, and have
important impacts on natural populations. A central question in host-parasite ecology concerns
what features of host behavior, life history, and environment best explain the diversity and
evolution of infectious diseases. Significant theoretical progress has advanced our understanding
of factors that influence infectious disease dynamics within populations, yet relatively few
studies have analyzed ecological variables that underlie observed variation in pathogen diversity
and characteristics. This project will examine patterns of parasite diversity across three
mammalian orders to explicitly test predictions derived from both epidemiological models and
island biogeography theory. Major questions this project will address include (1) What are the
key ecological variables that determine variation in the types and diversity of parasites in wild
mammal populations? (2) How do parasite transmission mode and the degree of specificity
depend on host ecology? (3) Does evolutionary diversification of hosts correlate with patterns of
parasite species richness? (4) Does knowledge of parasite diversity have important implications
for wildlife conservation?
Establishing a large database on the pathogens and parasites infecting wild mammals is
critical to conducting comprehensive analyses and represents a major goal of this project. The
investigators have recently assembled a large database on the pathogens and parasites of
primates and will extend this effort to two other well-studied groups - carnivores and ungulates.
These databases capture (i) ecological, behavioral and life history traits relevant to theoretical
models of disease spread, (ii) records of parasites and pathogens recovered from wild
populations, (iii) data on parasite transmission mode and degree of host specificity, and (iv)
phylogenetic information on the hosts. Database development requires an immense effort and
following this study all data will be made freely available over the World Wide Web so that
other scientists can access the fruits of this labor.
Understanding factors that underlie parasite diversity and characteristics is vital to
managing vulnerable wildlife populations and mitigating threats to human health. This study
extends the scope of previous host-parasite comparative work by examining a rich diversity of
both micro- and macroparasites, including information on parasite characteristics, and by
assessing phylogenetic information involving tree topology, branch lengths and rates of host
diversification. Analytical comparative methods will control for sampling effort, test multiple
variables simultaneously, and will assess whether host and parasite traits are correlated with
phylogeny. A synthetic approach that links ecology, parasitology, epidemiology, and
phylogenetic comparative methods is crucial for developing a broad conceptual framework to
explain parasite diversity and characteristics in relation to host features. To advance these goals,
the investigators will organize three annual workshops composed of experts from each of these
disciplines to refine predictions for comparative research, explore methods for examining
ecological and evolutionary interactions in host-parasite assemblages, and chart future directions
for both theoretical and empirical work.